Propagation Effects in Optically Thick Media of Three-Level Atoms

Propagation of electromagnetic pulses in thick optical media are investigated using numerical techniques. The problem is to try to understand whether resonant radiation can propagate in an undistorted fashion over long distances. The extra flexibility offered by two driving fields makes the problem interesting in optical fiber technology.